SFS Capacity Building: Enhancing the IAS Curriculum at Wichita State University

The Electrical and Computer Engineering (ECE) department and the Computer Science (CS) department at Wichita State University are jointly developing a broad and innovative curriculum covering various facets of Information Assurance and Security (IAS), with the support and assistance of the Center for Information Security at the University of Tulsa. Five professors from the ECE and CS departments at Wichita State University are working closely with the Center for Information Security faculty at the University of Tulsa to develop the course contents and projects suitable for undergraduate and graduate students in the area of IAS. This project develops the curriculum and laboratory facilities that will be required to train the students in the area of Information Assurance and Security. The project goals are to:
1. Build the core curriculum and create necessary laboratory facilities for student education and training in the area of IAS.
2. Create an IAS laboratory at Wichita State University.
The expected impact of the project includes the following:
1. Enhanced curriculum, laboratory facilities and research activities in the area of IAS at Wichita State University.
2. More opportunities for Wichita State University and other local college students to register for IAS related courses.
3. Increased awareness of information security related issues in the community.